Oceanographic Instrumentation - 2002

0205909
Diebold
This award to Lamont-Doherty Earth Observatory of Columbia University in the City of New York provides instrumentation to significantly improve the geophysical survey capabilities of the research vessel Maurice Ewing, an NSF-owned ship operated by LDEO as part of the University-National Oceanographic Laboratory System research fleet. The navigation and quality control software and other instrumentation supported here will improve survey capabilities and upgrade reliability of R/V Ewing for conducting geophysical research programs. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2002 and future years.
***